California Community College Transfer Consortium

Scholarships are being awarded to one hundred eighty six academically talented, financially needy students transferring from one of the thirty five participating community colleges to one of twenty four universities in the consortium. The students are majoring in computer science, engineering, or mathematics. The consortium is cooperating with numerous other projects within the State of California in an effort to increase the diversity of the workforce within these disciplines. Among the cooperating partners are the NSF Louis Stokes Alliance for Minority Participation, the NSF-UC Alliance for Graduate Education and the Professoriate, and industry volunteers from many of the country's leading companies and research centers.